Acquisition of a Confocal Scanning Laser Microscopic Work Station with off-line Analytical Capacity

Recent technical advances have transformed the optical microscope from an information gathering tool into an interactive analytical instrument capable of detecting, manipulating, quantifying and sorting subcellular, cellular and tissue specific properties. This application requests funds for the purchase of an Ultima 312TM Premium Laser Confocal Microscopic workstation (manufactured by Meridian Instruments, Inc.) with enhanced interactive software for data acquisition, storage, and off-line data acquisition. This confocal system was selected because its unique and comprehensive confocal abilities with multiple laser lines and applications software will accommodate the diverse needs of the researchers at the University of Louisville. To maximize user time, the system includes components that permit remote (off-line) data analysis and 3-D reconstruction while the microscope is in use. Among the tasks to be performed are: to obtain highly-purified primary embryonic cell populations; to study Ca2+ metabolism and intracellular pH after electrical and chemical stimulation; to examine co-localization of tRNA biosynthetic enzymes; to perform high resolution in situ hybridization studies; to determine the distribution of membranous components (i.e. receptors, complex carbohydrates) and their relationships to cytoskeletal organelles during a variety of dynamic cellular phenomenon including phagocytosis and neuritogenesis; and to obtain 3-D reconstructions for cytoarchitectural and developmental morphometric comparisons. The 16 research paradigms of the 32 faculty members in this application are not inclusive of all projects that would utilize the Ultima, but are intended to demonstrate the breadth of our needs. The instrument will be housed in the Core Analytical Microscopy Laboratory (CAML) which has served as the sole microscopy laboratory for all campuses of the University for the past four years. Being the first confocal microscopy system in the CAML, it would enhance significantly our optical microscopic capabilities, thereby providing for cuttingedge technology for research and the training of CAML users, graduate students and postdoctoral fellows. The research and outreach mission of our "Developmental and Molecular Neurobiology Program" funded by an NSF KY/EPSCoR contract will be greatly facilitated by this instrumentation. Furthermore, recent faculty recruitment in the biological sciences has been hampered by the lack of a confocal microscope. Therefore, in addition to facilitating research and training of investigators and students at U of L, the acquisition of the Ultima should assist future faculty recruitment in several departments and thus facilitate the strategic plan of the University to become a research institution. The genuine widespread need for this equipment is mirrored by the fact that more than 50% of the funds needed to purchase the confocal scanning laser microscopic workstation have been raised from the office of the University Vice President for Research, Dean of the Medical School, and 10 different departments in several schools as well as individual users.